Kinetic Techniques for Hyperbolic and Multiscale Problems

In recent years there has seen a very fruitful exchange between ideas in the theory of kinetic
equations and the theory of weak solutions for hyperbolic systems. At the core of this
exchange lies the issue of deriving continuum theories from microscopic models of kinetic
theory of gases or statistical physics. In this context transport properties play a crucial
role whether in a framework of kinetic equations, or in a context of nonlinear transport
as it appears with differential constraints in the context of polyconvex elastodynamics or
nonlinear models for Maxwell’s equations. This proposal has the objectives to perform
analytical and modeling work on the topics: (i) transport and oscillations in systems of two
conservation laws, (ii) collisional kinetic models and their hydrodynamic limits, (iii) effect
of differential constraints on the equations of polyconvex elastodynamics, (iv) mathematical
aspects of kinetic theory of dilute polymers, and (v) development of kinetic techniques for
homogenization problems.

Hyperbolic systems of conservation laws express the basic laws of continuum physics and
as such are central in modeling in the sciences. Kinetic modeling is becoming all the more
pronounced, as microscopic modeling and the associated derivation of mesoscopic equations
is commonplace in today’s engineering applications. Understanding of homogenization issues
and the couplings in problems where multiple scales interact are necessary ingredients for the
design of e
cient computational algorithms that proceed without resolving all microscopic
information of the problem. The mathematical analysis of issues related to the passage
from small to coarser scales has significant implications on the design of high-performance
computing algorithms, particularly when treating problems where scale interactions occur.
Such problems are at the center of modern material science with several applications in
chemical and materials engineering.